Sixth International Symposium on Small Particles and Inorganic Clusters, Chicago, Illinois, September 16-23, 1992

Professor R. Stephen Berry is supported by a grant from the Theoretical and Computational Chemistry Program to organize an International Conference on Small Particles and Clusters. This is the 6th conference in this series which is held every two years, and this is the first such conference to be held outside of Europe. The conference will be held at University of Chicago from September 16 through 23, 1992. The award will be used to provide participant support for attendees. %%% The subject of inorganic clusters is central to the field of materials design and preparation, and is one of the areas specifically targeted in the President's Science Advisor's special initiatives for 1992. The study of clusters provides new kinds of insights into the transition from molecular to bulk matter.